CISE Research Resources: Information Visualization and Incremental Knowledge Discovery in a Cluster Computing Environment

EIA-0130857
Elise deDoncker
Western Michigan University

CISE Research Resources: Information Visualization and Incremental Knowledge Discovery in a Cluster Computing Environment

This proposal seeks funding to enhance a 64-node PC cluster at Western Michigan University, obtained in part on a previous National Science Foundation grant and university funding. Improving the cluster will give hardware support for on-going research and education on parallel and distributed algorithm design and development. Although the cluster is currently used for various research efforts by different groups in the university, this proposal focuses on two of these projects: parallel integration and distributed incremental knowledge discovery.

The requested infrastructure includes a networking upgrade to support the current communication intensive (high bandwidth/low latency) projects. These include the tailoring of load balancing methods underlying the migration of regions in adaptive partitioning. The system will also provide a better environment for our study of the scalability of task partitioning methods in numerical integration and other areas. The proposed project on the development of methods for incremental knowledge discovery from large databases will further be supported by the visualization components of the infrastructure. This effort includes 3D interactive visual exploration of large relational data sets. The techniques will be incorporated in a systematic way into a software system for incremental knowledge discovery, and evaluated for effectiveness and suitability in different scenarios.